CRI-II-NEW: Collaborative Research: Measurement Infrastructure for Home Networks

Over the past decade, Internet usage has grown by more than 3.5 times,
to about 1.6 billion users; about 300 million of these are broadband
subscribers. Unfortunately, despite this growing penetration and users'
increasing reliance on broadband networks for critical or
performance-sensitive applications, neither the research community nor
industry knows much about the performance of access links, or how users
configure and use networks inside the home. The lack of visibility into
today's home networks makes it nearly impossible to understand the
problems that users experience in these networks, let alone how to fix
them. A critical first step towards improving our understanding of home
networks is gathering data from homes. Towards this end, we are
developing a home network measurement infrastructure consisting of (1)
customized routers deployed in homes and (2) a central data collection
server. We are deploying both the measurement infrastructure across
hundreds of homes and collecting a corpus of active and passive
measurements that will shed more light into home network performance and
use. Given the proliferation of network devices in the home and the
general public's growing attention to the performance of access
networks, we expect that the infrastructure that we deploy and the data
that we gather from this infrastructure will play in important role in
improving our collective understanding of how home networks are used and
how well they perform. We will disseminate our results through
conference and journal publications, as well as talks with and
presentations to researchers, policymakers, and practitioners.